Hydrogenation Reactions on Copper Surfaces

A team of researchers at the University of Illinois Chicago (UIC) are supported to explore the interactions of hydrogen with copper surfaces. Many metals catalyze important chemical reactions. However, the best catalysts often use the rarest and most expensive elements, such as platinum (Pt) and iridium (Ir), and identifying catalysts based on lower cost metals is a significant challenge. The UIC team is using sophisticated ultrahigh vacuum techniques to study copper-catalyzed hydrogenation reactions on single-crystal copper surfaces. Their discoveries could lead to catalysts for hydrogenation reactions that rely on inexpensive metals, which in turn could lead to improved efficiency and sustainability in existing, as well as future manufacturing processes that rely on hydrogenation reactions. The project will also provide research opportunities for graduate, undergraduate, and high-school students, thereby contributing to the development of a nation STEM workforce.

The research team is using polarization dependent reflection absorption infrared spectroscopy (PD-RAIRS) under ambient pressure conditions to characterize hydrogenation reactions over Cu(111). The ambient pressure studies are complemented by studies under ultrahigh vacuum (UHV) conditions using a variety of surface sensitive techniques. With PD-RAIRS, they are monitoring the evolution of gas phase products while also characterizing adsorbed surface species. Because molecular hydrogen does not dissociate on Cu(111) in UHV, the initial dissociation step is bypassed by exposure to atomic hydrogen. The adsorbed hydrogen is detectable with RAIRS, which can be used to monitor the amount of surface hydrogen as it is consumed in hydrogenation reactions. One goal of the project is to establish the relative hydrogenation reactivities of surface and subsurface hydrogen. From the RAIRS results of hydrogen on Cu(111) formed by exposure to atomic hydrogen, the team is searching for evidence for surface hydrogen following exposure to elevated pressures of molecular hydrogen. In this way, they hope to elucidate the ability of copper catalysts to promote reactions involving hydrogen. The students participating in the project are developing skills with spectroscopic techniques, ultrahigh vacuum technology, and research methods in heterogenous catalysis.